Mathematical Sciences: Tandem Traineeships for Cross-Disciplinary Statisticians

The principal objective of the National Science Foundation Graduate Research Traineeship Program is to increase the numbers of talented U.S. undergraduates enrolling in doctoral programs in critical and emerging areas of science and engineering. Proposals were solicited from institutions whose existing facilities and staff could accommodate additional graduate students in Ph.D. programs of high quality. The program is also intended to contribute to strengthening the Nation's human resource base across all geographic sectors and among all under-represented groups. Graduate Research Traineeship awards are packages of student support. The colleges and universities that receive the awards are responsible for the selection of trainees, retention of trainees, and administration of traineeships. Stanford University plans to increase the number of U.S. Ph.D. statisticians through a "Tandem Traineeship" program. The objective of the program will be to produce students with the skills and desire to (a) conduct cross-disciplinary research in science and engineering and (b) foster undergraduate education in the mathematical sciences, particularly probability and statistics, from a broad, interdisciplinary perspective. In order to create a structure in which the cross-disciplinary idea is nurtured, students will be encouraged to follow their interests and those of their chosen faculty members in at least two departments. In order to attract a broad base of qualified U.S. applicants, particularly women, minorities and students with disabilities, current mentoring and recruitment efforts will be expanded.